Variational Conditions: Structure and Computation

This project is focused on investigating the mathematical structure
of certain classes of variational conditions, and designing and
analyzing effective computational algorithms to solve them.
Success in the proposed work would permit analysis to be done
more simply, with better insight, and with greater exploitation of
problem structure, for a broad class of equilibrium problems
having substantial practical usefulness as well as intrinsic
mathematical interest. It would also produce better computational
algorithms, and the means for justifying them. Sub-topics in this
research program include:

- Gaining better insight into degeneracy and its effects through
analysis of parameterized versions of variational conditions,
with the aim of illuminating the effect of special structure on
the sensitivity and stability behavior of the problem.

- Developing new computational methods using approximate
derivatives, justifying their convergence, and testing them
computationally.

- Improving convergence analysis for methods of linearization
type, and applying that analysis to, e.g., the computational
methods discussed just above.

- Analyzing specially structured variational conditions using
methods of composition duality combined with the new
stability and sensitivity information developed in this project.

- Applying knowledge gained in the above research to analysis
of other promising areas such as quasi-variational
inequalities.

Variational conditions are mathematical models of equilibrium
problems. They are useful for a wide variety of problems from
areas including economic policy studies, agricultural economics,
structural engineering, transportation, materials science, game
theory (that is, models of conflict), and others. One of the reasons
why these problems are especially hard is that they model
situations in which individuals or groups are not acting in concert,
and indeed are often acting at cross purposes. For example, in a
road traffic equilibrium problem each driver is trying to find a
route that is best for him or her, but the effects of many drivers'
independent choices can make conditions bad for everyone (e.g.,
by creating congestion on popular routes). The research that is
proposed will try to develop more knowledge about how
mathematical models can represent these problems, what the
properties of those models are, and how to use those properties to
compute numerical solutions to the models. With such knowledge
the models could then be used to answer "what-if" questions and
thus to design better management methods. For example, civil
engineers interested in improving traffic flow might use such
models to predict more accurately the effect of improving existing
roads or of building new roads, and thereby determine how best to
spend a limited budget to reduce traffic congestion.